Improvement of Undergraduate Laboratory Courses by the Use of HPLC

The Department of Chemistry is purchasing a high performance liquid chromatograph for use in both the sophomore majors and the non-majors organic chemistry sequences. The instrument is also used in the upper division advanced laboratory courses. Students in the lower division courses use the instrument to separate the components of various commercial products. The theory underlying the technique and the effect of changes in operating parameters